Mathematical Sciences: International Conference and the School-Seminar in Stochastic Partial Differential Equations,to be held May 3-8, 1991, Charlotte, North Carolina

This grant will support an International Conference in Stochastic Partial Differential Equations (SPDE's), May 6-8, 1990, and a satellite School-Seminar in the same topic for new researchers, May 3-5. Both activities will be held at the University of North Carolina at Charlotte. The purpose of the conference is to bring together researchers who are working on different theoretical and applied aspects of SPDE's and to promote research in this field. The purpose of the School-Seminar is to bring the subject of SPDE's to the attention of new researchers (graduate students, postdocs and recent Ph.D.'s) and provide them with a unique opportunity to be taught by, meet, and have discussions with the outstanding scientists working in the area. The introductory sessions scheduled for the School-Seminar are linear elliptic and parabolic SPDE's, methods in non-linear SPDE's, and applications of SPDE's. The main part of the conference will cover recent theoretical developments in SPDE's and various applications, especially to oceanography and signal processing.